High Energy Gamma-Ray Astrophysics with STACEE

The PI proposes to finish building the astrophysical gamma ray detector, STACEE (Solar Tower Atmospheric Cherenkov Effect Experiment) this year and to operate it for a duration of three years. STACEE will be used to study astronomical sources that emit photons at GeV energies. The sources are AGN, gamma bursts, pulsars, and supernova remnants.